1989 Gordon Research Conference on Catalysis, New London, New Hampshire from June 19 to 23, 1989

Support is provided for travel expenses of speakers and young faculty members at the 1989 Gordon Research Conference on Catalysis to be held in New London, NH, June 19-23, 1989.